High Speed Disk Storage for Connection Machine

High-speed disk storage for a Connection Machine will be provided for researchers at Boston University. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The equipment will be used for several research projects, including in particular: Computational Investigations of Field Theories, Dynamic Micromagnetic Simulations of Magnetic Films, Chaotic Dynamics, Massively Parallel Implementations of Neural Nets and Geometric Surfaces for Manufacturing.